Travel funds for NSF 2012 CBET Grantee Conference, June 6-8, 2012, Baltimore, MD

1246237 (Kleissl). This is a travel grant for the CBET grantee to attend and present at the CBET Grantee Conference in Baltimore, June 6-8, 2012